Presidential Young Investigator Award: Signal Interpretation and Representation Using Neural Architectures

Zakhor This research incorporates signal and image representation, synthesis and restoration, and issues related to the applicability of multiresolution decompositions to various classes of signals and signal processing algorithms. These include fractal-type signals to which traditional wavelet analysis applies, and those which are best represented by different filters at different resolutions. For the latter class of signals, an adaptive subband coding algorithm is being developed that affects the multiresolution decompositions.